Oceanographic Instrumentation 2003

0303358
Bash
This award to University of Rhode Island provides funds to acquire a replacement for an aged and unrepairable liquid scintillation counter. The instrument is essential for conduct of research projects at sea that involve radioisotopes. This acquisition provides an important shared-use capability to marine scientists using R/V Endeavor in their research in 2003 and future years.
***